Analytic Number Theory and Formalized Mathematics

As mathematics becomes increasingly intertwined with computing and artificial intelligence, libraries and other large databases of verified mathematics provide a trusted foundation for scientific discovery, software verification, and AI-assisted reasoning. This project will create an extensive database of formalized analytic number theory, extending the PI's ongoing Prime Number Theorem+ project (joint with Terry Tao). The project will also train graduate and undergraduate students in both traditional mathematics and formal proof technology, preparing them for careers in research and technology. Through freely available educational materials, annual research workshops, and the Rutgers Math Corps summer program serving New Brunswick area middle and high school students, the project will broaden participation in mathematics while helping position the United States as a leader in formal mathematical verification and its applications to science, computing, and AI.

This project will formalize the core of classical analytic number theory in the Lean proof assistant. The research will develop verified foundations for elementary methods, sieve theory, exponential sums, L-functions, zero-free regions, and applications to primes in arithmetic progressions. The project will address key research challenges in formalizing asymptotic notation, abstraction frameworks for L-functions, contour integration for rectangles and more general contours, oscillatory integrals, stationary phase methods, and the large sieve. The resulting library will cover the foundational results while developing reusable infrastructure and collaborative methodologies, including blueprint technology with dependency graph visualization, for large-scale mathematical formalization. The research will contribute broadly applicable tools to the Lean mathematical library (Mathlib), supporting future work in mathematics, computer science, and AI-assisted theorem proving.